A new approach of statistical modeling and analysis of massive spatial data sets

This proposal focuses on the development of a new approach to tackle the challenges in statistical modeling and analysis of massive spatial data sets. Due to the complexity and enormousness of the data, conventional statistical methods for analyzing, modeling and making inference of large data become indispensable in current research and application of environmental, earth and biological sciences. Two approaches have been recently proposed but have their own drawbacks. One approach, based on low rank approximation of covariance functions, works well to model large scale spatial variability but may fail to adequately capture small scale behavior. The other approach, based on sparse matrix approximation, appears to work better when the spatial data have only relatively small scale dependence. The investigators propose a new approach that combines these two approaches to provide a high quality approximation to the covariance function at both the large and small spatial scales. Specific research projects will include parameter estimation of various geostatistics models, data imputations for missing satellite measurements, spatial-temporal modeling for detection and prediction of global climate change, multivariate spatial models for multivariate satellite measurements, and non Gaussian spatial models for characterization of extreme environmental events.

With rapid advances of science and technology, large amounts of spatial data are generated from various sources including remote ground sensors, satellite images, scientific climate computer models, Geographic Information Systems, and public health and spatial genetics. The proposed methods will make it possible to analyze, model and make inferences about massive spatial data sets and benefit researchers and practitioners in environmental, earth and biological sciences. Research results will be disseminated through collaborative work, academic presentations, and journal publications. Web pages will be created to enable quick access to user-friendly and accessible software implementations of new methods as well as technical reports and relevant references.